Neurochemical Organization of Feeding Behavior

In certain invertebrate model systems which contain large, recognizable nerve cells, the individual nerve cells are known to control behavior by the release of specific neurochemical transmitters. In one of these model systems, the brain of the leech, the neurotransmitter serotonin directly activates the organs of ingestion. These effector neurons which regulate feeding behavior are in turn controlled by the activity of two classes of sensory cells. Sensory cells that detect potential prey organisms excite the neurons to fire and release serotonin. Sensory cells that respond to distension of the body resulting from a meal both inhibit the feeding neurons from firing and terminate feeding. In this award Dr. Charles Lent will investigate the relationship betwen feeding behavior and neuronal firing patterns; his studies will also use specific nerve cell staining and sensitive chemical assays to describe the anatomy and transmitters of sensory cells that control the activity and serotonin levels in the large nerve cells that are responsible for feeding. Because the behavioral states of hunger and satiation are separable, these studies will be able to demonstrate the way in which communication between nerve cells regulates the amount of transmitter that expresses either one or the other of these two behavioral states. This research will contribute fundamental knowledge about the neurochemical organization and control of feeding behavior.